Purchase of an NMR Spectrometer

The high field NMR Spectrometer is the single most important tool available to organic and inorganic chemists for structure determination and it is becoming a significantly useful technique for analytical chemists and biochemists. This award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry at Miami University acquire a high field NMR. The NMR will be used in the following research topics: l. NMR Detection and Characterization of Labile Hydrolysis Reaction Products 2. Acyclic Stereocontrol by Double Asymmetric Synthesis 3. Development and Utilization of Chromogenic and Fluorogenic Crown Ethers 4. New Organogermanium, Organotin, and Organolead Hydride Reagents 5. Characterization of Heparin "Esters"